STTR Phase II: Lifelike Virtual Tutors to Support Authentic Learning

This Small Business Technology Transfer (STTR) Phase II project will develop proof-of-concept, Web- or CD-delivered Virtual Reality (VR) simulations that incorporate lifelike virtual tutors, capable of demonstrating and performing science experiments and communicating in written or spoken English or sign language, for Grades 5-8 curricula.

This project provides an opportunity to broaden participation of under-represented groups in authentic learning experiences, through the use of lifelike virtual tutor avatars. Originally conceived as a means to explain concepts visually and with sign language to deaf students with low English skills, these virtual tutors will benefit a broader range of learners who are otherwise isolated by language or reading barriers, or by lack of access to laboratory equipment.